Collaborative Research: The Four-Dimensional Pattern of Rifting In The Southern Gulf of California

The PIs will carry out a swath bathymetry survey of the southern Gulf of California, obtain 3.5 kHz, magnetic and gravity profiles and collect dredge samples of the volcanic basement. The objectives are to test hypotheses concerned with the generic problems of how continental rifts are segmented tectonically and whether this relates to asymmetries of faulting, how rift propagation occurs tectonically and what type(s) of magmatism accompanies continental break-up and earlist seafloor spreading. The Gulf of California is a MARGINS' focus site and this study will complement other research being carried out and planned for this region.